An Integrated Micromechanics Approach to Physics-Based Modeling of Deformation and Failure of Superelastic Materials

An Integrated Micromechanics Approach to Physics-based
Modeling of Deformation and Failure of Superelastic Materials

P. Papadopoulos and R.O. Ritchie

The objective of the proposed work is to develop an integrated experimental,
theoretical and computational description of the deformation, fracture and
cyclic fatigue behavior of polycrystalline superelastic/shape-memory alloys.

Intellectual Merit:
The proposed work seeks to characterize the mechanical behavior of a complex
textured material that undergoes a series of solid-solid phase transitions,
which crucially affect its multiaxial stress-strain response and its fatigue
characteristics. The intellectual merit of the research stems from the
challenging questions that it addresses and from the integrated nature
(experiments, theory, computing) of the proposed methodologies.

Broader Impact:
Superelastic alloys are experiencing an explosive growth in use, mostly in
biomedical devices, but also in a number of other civilian and military
applications. As an example, the cardiovascular stent industry in 2003
is estimated at 5 billion dollars per year in the US alone and superelastic
Ni-Ti alloys are fast becoming the principal material for these stents.
At the same time, there exist significant uncertainties regarding the
mechanical response of such alloys, especially under multiaxial loading and
cyclic fatigue. The proposed research intends to address these uncertainties,
thus contributing to the safer and more rational use of these materials in
engineering practice.